Seminar Series In Computational Biology: DIMACS: July & August 1992

In collaboration with the Waksman Institute for Molecular Genetics at Rutgers University, the DIMACs Center will run a research seminar in computational biology in July and August 1992. Topics will centeraround molecular genetics, and will include fragment assembly, artificial intelligence in molecular biology, informatics, pattern identification for genetic regulatory regions, DNA and protein structure predictions, the detection of distantly related proteins by sequence comparison, protein folding, and self-organization and adaptation of complex systems.